Stellar Dynamos

Thomas, John 95-28398 Dr. Thomas plans a concerted program of research on dynamo theory, concentrating in three areas -- dynamo generation of magnetic fields in white dwarfs, dynamo generation of magnetic fields in the giant planets, and the aperiodicity and chaos in nonlinear stellar dynamos. In addition, he will investigate the solar dynamo as a benchmark for all three of the aforementioned studies. ***